Calculus Enhancement Project

With the recognition that current industrial uses of mathematics includes numerical, graphical and symbolic systems, the faculty wants to enhance their calculus instruction with an open lab that would be available for demonstrations and student homework assignments.